International Workshop on Molecular Biology of Cell Differentiation and Embryonic Development; Chile, January 4-6, 1995

9412818 DeRobertis This Americas Program award will support travel and related expenses for ten U.S. scientists and four U.S. post-doctoral students to attend and participate in the " International Workshop on Molecular Biology of Cell differentiation and Embryonic Development" to be held in Santiago, Chile, on January, 1995. The students will be full participants and present lectures on their work. Partial support for four Latin American graduate students is also included in this award. The workshop organizers are Dr. Edward DeRobertis, University of California, Los Angeles, in collaboration with Dr. Jorge Allende, University of Chile. The objective of this workshop is to strengthen international scientific collaboration in research and to stimulate the interest of young scientists and students in an area that has undergone dramatic advance in recent years. The attendance of world leaders in the field and representatives from outstanding Latin American laboratories is likely to lead to the identification of research opportunities and closer integration of efforts. ***